Toward Semantically Founded Programming Environments

Existing tools for program development are based on a perceived requirement to support programming in conventional languages - languages often biased toward batch translation. Yet integrated development environments can hide many of the idiosyncrasies of conventional programming languages, provided only that the emphasis on conventional languages is relaxed. Semantically founded programming environments emphasize the semantic aspects of computations and descriptions of computations (programs). A semantically founded environment provides for direct manipulation of semantically interesting objects and structures without requiring a user to manipulate a syntax-based representation. The environment is organized as a collection of interacting components. Each component packages a well-defined aspect of a language or program with appropriate user-interfaces and editing models. This approach capitalizes on an environment's ability to stimulate or hide many idiosyncrasies present in textual representations of programs. This program is a two year investigation of the principles and technologies underlying semantically founded development environments. The research is expected to bring new advances in the fields of environment architecture, program development paradigms, semantic description methods, and the use of logic to support programming.